Introducing Software Tools into Linear Algebra and Principles of Mathematics

Mathematical Sciences (21). This project is adapting and implementing materials and approaches from the ATLAST (Augmenting the Teaching and Learning of Linear Algebra through Software Tools) project (DUE-9154149 and DUE-9455074) into two first-year courses for prospective mathematics majors, including preservice K-12 mathematics teachers. The primary focus is on the incorporation of these materials into an introductory course in linear algebra, with a secondary focus on the use of specific computer-based modules and materials from ATLAST into a course, "Principles of Mathematics," which serves to introduce proofs to future mathematics majors.